Mathematical Sciences: NSF/CBMS Regional Conference in the Mathematical Sciences on Equivariant Homotopy and Cohomology

The main topics of the conference are the recent developments in equivariant homotopy and cohomology theory. Special emphasis will be given to the Segal and Sullivan conjectures and their generalizations. Professor May's ten principal lectures will include the following interrelated topics. - Unstable equivariant homotopy theory - The Sullivan conjecture and its applications - Equivariant bundles and classifying spaces - RO(G)-graded cohomology theory - The Segal conjecture - The stable category; G-spectra and their completions - Tate, Borel and co-Borel homology - The Atiyah-Hirxebruch-Tate spectral sequence - Equivariant K-theory - Equivariant infinite loop space theory and algebraic K-theory A main value of this conference will be to let interested researcher "see the forest, not just the trees" of this area of algebraic topoloty. The lecturer, Peter May, is one of the leaders in the field. This project will support an NSF-CBMS Regional Research Conference in the Mathematical Sciences on Equivariant Homotopy and Cohomology to be held August 2 - 6, 1993, at the University of Alaska in Fairbanks. Peter May of the University of Chicago will be the principal lecturer. To stimulate interest and activity in mathematical research, the National Science Foundation each year supports a number of NSF-CBMS Regional Research Conferences in the Mathematical Sciences. Each five-day conference features a distinguished lecturer who delivers ten lectures on a topic on important current research in one sharply focused area of the mathematical sciences. The lecturer subsequently prepares an expository monograph based upon these lectures, which is normally published by the American Mathematical Society or the Society for Industrial and Applied Mathematics, or jointly by the American Statistical Association and the Institute of Mathematical Statistics. Certain features differentiate these conferences from typical research conferences. These are: (1) Focus on a single important and timely area of research by a leading practitioner, (2) Continued effect and local stimulation through regional emphasis, (3) Panel review for quality, breadth, and timeliness, and (4) Published monographs for a wider audience.